TAUP 2003, Eighth International Workshop on Topics in Astroparticle and Underground Physics

The funds request from the NSF in support of the international
conference Topics in Astrophysical and Underground Physics will
be used to support local and/or travel expenses for two groups
of participants. The first are young researchers, graduate
students and postdoctoral research associates, who lack adequate
resources to otherwise attend. TAUP is an excellent meeting
for young researchers because of the opportunities to speak
in afternoon workshops and to participate in the poster session.

The second are participants wanting to participate in the
afternoon workshop on outreach and education. Several key
people -- a public school teacher active in FermiLab outreach,
an outreach specialist for a major science center -- will be
able to attend only if we can support their travel. The outreach
workshop is new to TAUP, suggested by Sandro Bettini, Director
of Gran Sasso and the chair of the TAUP2001 organizing committee.
Its purpose is to bring together outreach specialists from
international underground laboratories (as well as other
laboratories) to discuss how outreach programs can be coordinated
and enhanced. The TAUP workshop is being organized by Roberta
Antolini (Gran Sasso director of outreach), Len Bugel (involved
with FermiLab outreach to public schools), and Evalyn Gates
(with the Adler Planetarium). Bettini will also address this
topic in his plenary talk. There is keen US interest in this
topic because of outreach plans for the proposed NUSEL.